Statistical Signal Processing and Estimation for Spatial andMultidimensional Data: Multiresolution Methods, Efficient Algorithms and Geometric Reconstruction

Willsky There are three major components of this research program which has as its overall objective the development of new classes of algorithms for statistical signal processing and estimation of spatial and multidimensional data. The first is the development of statistical models and methods for multiscale signal analysis and processing in one and several dimensions. Problems that are being addressed include the development of a statistical counterpart to the emerging theory of multiresolution signal decompositions and wavelet transforms, the investigation of iterative, multigrid signal processing algorithms, and applications of these methods to topics ranging from inverse reconstruction problems to problems of signal or image segmentation. The second is the development of efficient algorithms for processing spatial data. This topic focuses on the exploitation of the structure of noncausal models, such as those described by partial difference equations or Markov random fields, in order to develop extremely efficient and highly parallel algorithms. Specific problems being investigated include the employment of radially inward and outward recursions for multidimensional signal processing, parallel processing structures based on spatial partitioning of multidimensional signal processing, and the development of efficient algorithms for tracking motion and other temporal changes in space-time random fields. The third is the development of statistical methods for estimating or reconstructing geometric features in multidimensional data given uncertain measurements of various quantities, such as the support of a convex object in 2-D or 3-D, or the 2-D silhouette of 3-D objects.